Conference: Seventh International Conference on the Cell & Molecular Biology of Chlamydomonas; Regensburg, Germany, May 27-June 1, 1996

9513727 Harris This is a group travel award to support the participation of U.S. scientists at the 7th International Conference on the Cell and Molecular Biology of Chlamydomonas, to be held in Regensburg, Germany, May 27 through June 1, 1996. ***